Enhanced MBL and Implementation of Workshop Physics

Colin Terry DUE 9550841 Ventura College FY1995 $ 34,021 Ventura, CA 93003 ILI - IP Physics Title: Enhanced MBL and Implementation of Workshop Physics The aim of this project is to increase the learning, retention, and enrollment of students in physics at Ventura College. This is being achieved by adopting a workshop approach to teaching physics using enhanced microcomputer-based laboratory (MBL) tools. The time students traditionally spend listening passively to lectures is replaced by direct, peer-group collaborative enquiry in a laboratory environment. Workshop physics uses integrated computer tools, including MBL, in mechanics and other areas of the curriculum. Enhanced use is made of dynamic spreadsheets and graphs for data analysis. An emphasis is placed on using these tools for modeling. The use of digital video analysis is also being used in the laboratory setting. Workshop physics provides a more supportive learning environment for students and a more supportive atmosphere for traditionally at-risk students such as those in Ventura's large Hispanic population. In addition, the MBL equipment and techniques from Workshop Physics will be introduced into the physical science course being developed for preservice teachers.